GEM: Communication Coordination for the Geospace Environment Modeling Program

This project will continue to develop and support a communications infrastructure for the Geospace Environment Modeling Program. This includes comunications through an electronic newsletter, a regularly mailed newsletter, and support of a WEB page linked to past issues of the newsletters, reports, meeting information, on-line poster sessions to support meetings and workshops, database support with access to interplanetary and solar wind data, and proposed to include information from and about the GGCM campaign.